Statistical Evaluation of Nonlinear Response in Seismic Isolation Systems

Base isolation systems offer an attractive method of mitigating the effects of earthquakes under certain conditions. Worldwide interest in the concept is at a high level. This research project analyzes and statistically evaluates the maximum nonlinear response of various types of seismic (base) isolation systems for a number of earthquake time history records. The results of the proposed research are intended to support the development of seismic design methodology by providing the basic necessary data to judge the validity of certain prescriptive design formulas, assess the limits of applicability for the formulas and to modify the formulas, as appropriate, prior to incorporation into design codes. The research project is being conducted under the Expedited Awards for Novel Research programs.